Sunflower/Girasol Science Discovery Magazine for Latino Children

9452849 Zuman This project develops the Sunflower Science Discovery Magazine for Children. This is a fully bilingual English\Spanish publication designed to encourage Latino students to develop language skills as well as turn their interest to the world of scientific discovery. The magazine is geared towards students in grades 3-6, and presents science information and experiments in stimulating graphic formats and poses interesting and relevant questions for children based on current scientific developments. In an effort to provide positive role models for children of Hispanic descent, the magazine highlights historical and contemporary contributions and accomplishments of Latino scientists. The magazine also strives to foster a multicultural perspective by presenting science and technology issues faced by selected communities in various stages of economic development to Latino children in an attempt to strengthen their identification with their national origin and ethnic heritage. Initially, two issues are being produced with plans to produce fourteen issues over a four year period. The ultimate goal is for the publication to become self-sustaining after the development period. ***